Gender Differences in Wages

The Principal Investigator has moved from the University of Texas at Dallas to the University of Arizona. This REU Supplement provides support for two students at the PI's new location.